Postdoctoral Research Fellowships in Chemistry

Dr. Hernando Trujillo has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Truillo's doctoral degree was from Dartmouth with Professor Russell Hughes. He plans to continue research with Professor Didier Astruc at Bordeaux. In Atruc's laboratory, he will learn about electron chain catalysis with transition metal catalysts. This will also bring him into contact with techniques stuch as Mossbauer spectroscopy, cyclic voltammetry and ESR. These experiences will help him with his long range goal of studying highly strained molecules and addressing the questions of their reactivity. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.'s and attract them into meaningful careers in contemporary chemical research and teaching.